AGI Internship Program for Outstanding Secondary School Science Teachers

This internship program will continue to provide opportunities for high school science teachers to become familiar with the cutting-edge basic research being undertaken by earth scientists at U.S. universities and research institutions; to learn about the new technology that is being used in and, in some cases, is driving such research; to gain experience in the planning and management of basic earth sciences research through either a summer or academic semester of work with the National Science Foundation ocean sciences programs and at academic research laboratories or facilities, as appropriate. This effort will involve two interns each for the spring, summer, and fall of l987 who will be assigned to appropriate programs within the Ocean Sciences Division. They will work with the programs to which they are assigned, consistent with the WORK PLAN outline. The interns will be selected by the AGI, as outlined in the proposal and amplified in discussions between AGI and NSF officials. The experience gained by the teachers who participate in this internship program should enable them in turn to update and to improve the quality and scope of high school science programs reaching many students who will in turn enter U.S. university science programs.